Upper Elementary Science Teaching: Integrating the Knowledge Bases

The University of Michigan will carry out an experimental four year project, "Upper Elementary Science Teaching: Integrating the Knowledge Bases." The project will design and integrate with each other two upper-division physical science courses for elementary teachers, an educational psychology course, and science-focused field experiences. Problems in existing programs in which these components are independent and isolated from each other will be addressed by: integrating coursework in physical science, science methods, and educational psychology, b) providing extensive exposure to science methods, c) linking coursework to focused clinical experiences to provide a context for learning and practice and d) developing technological support to aid preservice teachers in integrating and applying these knowledge bases. The goal of the new program is to enable new elementary teachers to teach science in a manner that will deepen student understanding of fundamental science concepts. The ultimate aim of the project is to create a model program for science preparation of elementary teachers that can be adapted at similar large research universities. To aid in dissemination of the project, exemplary materials will be developed including curriculum guides, videotapes, sample student assignments, and case studies of preservice teachers in the program. The cost sharing will be 130% of NSF's contribution.